REU: Research Experiences for Undergraduates in the Biomedical Sciences

This is a Research Experiences for Undergraduates project. It will provide research experiences for ten students at Albert Einstein College of Medicine of Yeshiva University. Students will participate in projects involving biochemistry, biophysics, chemistry, neurobiology and genetics.